Senior Postdoctoral Fellowship in History and Philosophy of Science

Dr.Levinson is seeking to ascertain how early American aircraft manufacturers dealt with the matter of the selection and, possibly, design of airfoil profiles (wing cross-sections) for their machines. The major work to be done is the examination of remaining archival materials of early firms such as Boeing, Martin, and Curtiss-Wright. Dr. Levinson will start with a study of Boeing Airplane Company materials in the area of Seattle, Washington close to the host institution, the University of Washington. Other material of interst is held in the "Old Wright Brothers Windtunnel" archive at the Massachusetts Institute of Technology. The significance of this work is twofold. First, it will provide a major piece in the structure of an ongoing project, a comparative study of early American and German airfoil work. Second, the project also will provide understanding of how an emerging American industry dealt with a fundamental question important to the design of its products. The study will provide one more window on the matter of how American industry and engineers came to accept, or fight, the ever increasing importance of science and theory to the development of technology in the twentieth century.